Riemann-Hilbert Problems, Integrable Systems and Random Matrix Theory

Abstract
Deift

The PI will continue his work on the analysis of various asymptotic
problems in mathematics and mathematical physics. The steepest-descent
method for Riemann-Hilbert problems will continue to play a key role.
In particular, the PI will consider

** the perturbation theory of specific infinite-dimensional integrable
systems which support soliton solutions
** universality problems in random matrix theory
** asymptotics for multiple orthogonal polynomials, with a view to proving
the irrationality of certain distinguished constants
** the asymptotic evaluation of Toeplitz and Hankel determinants, of the
kind that arise in the analysis of Bose-Einstein condensation
** statistical experiments which demonstrate the prevalence of random
matrix theory in mathematics, physics and also in the "real world".

One of the most fascinating scientific developments over the last fifty
years has been the discovery that an extraordinarily wide variety of
mathematical and physical phenomena are modelled by the eigenvalues of a
random matrix. In particular, random matrix theory describes the
scattering of neutrons off large nuclei, as well as the statistics of the
zeros of the Riemann zeta function on the critical line in the complex
plane. More recently, it has been discovered that random matrix theory
also describes problems in the "real world", such as the bus scheduling
problem in the city of Cuernevaca in Mexico, the distribution of telephone
numbers in the Manhattan telephone directory, as well as the statistics of
a form of solitaire called patience sorting. A central focus of the PI's
work will involve the analysis of random matrix theory per se, as well as
the application of random matrix theory to new problems in mathematics,
physics and the "real world".